Atomic-Level Imaging of Early Events in Intercalation

The primary aim of this research is to develop a comprehensive atomic-level understanding of the chemical reactivity and reaction mechanism associated with the intercalation process. Scanning tunneling microscopy/spectroscopy will be used in combination with dynamic high-resolution transmission electron microscopy for imaging early events in the intercalation chemistry of selected model reactions. In short, the fundamental questions of how and why intercalation occurs are addressed to enable synthesis of technologically important materials by design.